Basic Research in Mathematics

The School of Mathematics of the Institute for Advanced Study
(IAS) was formed in 1930 at the founding of the IAS. The initial
goal of the School was to provide a haven for scholars where they
could work in an environment that was exceptionally favorable for
conducting research. Over the years, other roles have emerged
and the School has assumed additional responsibilities including
guiding junior visitors in their research and organizing special
programs that widen the School's coverage of mathematics.
Although it has functioned in an international context, the main
impact of the Institute has been on the U.S. mathematical
community, with a majority of its visitors having come from or
been absorbed by it. The Institute frequently conducts programs
in special areas of mathematics. Topics of some recent and
forthcoming programs include symplectic geometry and holomorphic
curves, theoretical computer science and discrete mathematics,
motivic homotopy theory, computational complexity, and stochastic
partial differential equations and models of turbulence.

This project will support postdoctoral and mid-career visiting
researchers at the School of Mathematics of the Institute for
Advanced Study with the goal of supporting a wide spectrum of
mathematical research at the highest level. This activity will
provide these researchers unique opportunities for consultation
and collaboration.